Mathematical Sciences: Canonical Analysis of Multivariate Time Series

The project will develop methodology for multivariate time series analysis. Multivariate model building is a very important and current topic for research in the time series area. The proposed methods will be based on the canonical representation of the process and have the potential of revealing hidden simplifying structures of the process. This will be useful in obtaining an appropriate linear model for the process under study. The main tool used will be canonical analysis of vector processes, including lagged variables. The investigator has already significant results in the area and has excellent experience in applying the procedures to real-world problems. Since the research is primarily concerned with canonical analysis, many results obtained will have applicability beyond time series analysis.